CEDAR: CEDAR Initiative for an Ionospheric Ground Station

This proposal is for the establishment of a modern digital ionosonde in Argentina conjugate point of the Arecibo Observatory. After the ionosonde is operating, simultaneous measurements at both ends of the field line will be made .***//